Mathematical Sciences: Inference in Multivariate and Univariate Time Series

The principal investigator will investigate two areas of research in time series analysis: multivariate time series and nonlinear time series. Within the multivariate time series setting, the researcher will investigate the statistical inference in using the newly develope scalar component model approach to model building. This model building approach makes it easy to specify the underlying structure of a vector linear system. Within the framework of nonlinear time series, the investigator will investigate issues of model building. A time series is a collection of observations, ordered by time and correlated in time. The modeling of a time series represents an effort to understand the random process which is assumed to underlie the observations, as well as to predict or control future observations. Time series analysis impacts fields from economics to geosciences, from the environment to chemical processes.